U.S.-Japan Cooperative Research: Fatty Acid Composition in Blood Lipids

This award will enable Prof. William E. Lands of the University of Illinois at Chicago to collaborate over a period of two years with Prof. Tomohito Hamazaki of the Toyama Medical and Pharmaceutical Univ- ersity and Professor Harumi Okuyama of the Nagoya City University, both in Japan. They will investigate whether or not analysis of the fatty acid composition of blood lipid can provide a reliable index of a person's tendency to ingest certain types of polyunsaturated fatty acids. Six different types of blood lipids, each of which responds at a different rate to changes in diet, are accessible for study, and the researchers will attempt to establish a definite relationship between the composition of an individual's diet and the composition of the various blood lipids. The purpose of this research is to obtain data on blood lipid composition as a function of diet, and to this end groups of Japanese, among whom there is a wide range of fat intake, will be given selected diets containing various ratios of fish and fat, various types of fat, or a special diet developed at the University of Illinois at Chicago. These controlled diet studies will allow quantification of the relationship of blood lipid composition to diet, making it possible eventually to eliminate the vagaries of dietary recall from diagnosis of individual dietary problems. Collaborative interactive teams of biochemists and nutritionists have been formed at each university involved with this project. These workers will share common techniques, reagents, and internal standards to ensure comparability of the data obtained. Collaboration with Japanese workers is essential to realize the full advantage of the variety found in the Japanese diet. This work has major implications in the realm of dietary diagnosis and health improvement and maintenance.